Intermediate and Advanced Physics Laboratories in Ultrafast Phenomena

This project involves the use of new laboratory experiments that verify basic properties of quantum mechanical systems, including the interference of quantum states and the existence of conjugate variables, for the sophomore-through senior-year undergraduate physics curriculum. Students are employing ultrafast measurement techniques, including time-dependent spectroscopy and laser pulse auto-correlation. These techniques involve the use of an ultrashort-pulse laser oscillator capable of producing pulses of 20x10-15 second duration at a repetition rate of 108 Hz. This experimental equipment is based on solid state optical components and is easily maintained.